Marine Technician Support

9610292 Goad This award to University of Michigan provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Laurentian, a research vessel operated by the Center for Great Lakes and Aquatic Sciences as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct studies in the Great Lakes in 1997. ***